Large Scale Geometry, Index Theory and Representations of Groups

DMS-0204558
Jonathan L. Block

In recent years there has been an explosion of interest in the
applications of large scale or "coarse" methods in geometry,
topology, index theory and group theory. For many topological
and geometric problems of interest, this large-scale structure
is relevant in answering them. The Principal Investigator will
study three such instances. First, on a singular space, phenomena
are affected not only by the global fundamental group, but also
by a local picture of the fundamental group. The fundamental
groups of the link of a stratum changes from stratum to stratum
and affects the topological behavior of the space, in particular,
the classification of stratified spaces must take into account
this behavior. The PI proposes to study via operator K-theory
how the index theory of the strata of singular spaces
(as non-compact manifolds) fit together to give an index
theory for the singular space itself. Second, the PI
proposes to study more generally quantitative aspects
of homology theory, taking into account such issues as the
images of the homology of balls of a given size in the homology
of a non-compact manifold. Applications to existence of
infinitely many null-homotopic geodesics are proposed. Third,
the large-scale / small-scale duality between a discrete group
and its unitary representation theory has been studied under
the rubric of the Baum-Connes conjecture. The PI, motivated by
his work in large scale geometry proposes a broader study of
this duality. This requires the development of tools from
algebraic geometry (especially moduli space theory) to
apply to infinite dimensional unitary representations.
These tools place families of representations at the fore,
which as two effects. First, families of representations
seem to be more rigid then single ones. And secondly, one
can concentrate ones attention on specific parts of the
representation theory. Thus, the PI demonstrates, in several
situations, that for lattices in Lie groups, the
representation theory in an infinitesimal neighborhood
of the trivial representation coincide for the lattice and
the ambient group. A second type of question proposed by the
PI are called reconstruction problems. When can one reconstruct representations on the ambient group knowing its values on the
lattice? The PI views this as a version of the Sampling theorem
from signal processing.

Large scale geometry is the study of spaces as seen from an increasingly distant perspective. For many problems in geometry
and topology, the phenomena at a small or moderate scale only
obscure the situation and the large scale perspective shines
the essential light on the subject: seeing the forest for the
trees. This proposal focuses the attention of large-scale
geometry on problems in index theory and representation theory
of discrete groups. Students of PI and his collaborators are
involved at various stages of the project. The developments
and anticipated results are intended as a bridge between
algebraic and geometric topology, harmonic analysis and
functional analysis. This should provide a clearer understanding
of all these subjects and enhance the interaction between
the experts in them.